Methods for Synthesizing Regression Results

Intellectual Merit: In this project, the investigators will examine existing
indices for representing the results of regression analyses for meta-analysis,
and will develop new methods for synthesizing results from regression analyses.
Currently, meta-analytic studies often omit regression results due to the
difficulty in comparing results across different models. The investigators will
consider the appropriate standard errors for these study indices, which are
fundamental to most combinations of study results. In addition, they will
determine whether existing indices can be used to represent results of related
analyses such as structural equation models and hierarchical linear models
(HLMs), and will propose new indices if needed.

Several special cases will be considered in the research. In particular, results
meant to represent group differences (i.e., slopes for dummy variables) will be
considered, including cases where regression models contain several dummy
variables to represent factors with multiple levels (e.g., two treatment groups
and a common control group). Because meta-analysts also often wish to summarize
across studies with different designs (e.g., HLM studies with regression
studies), the proposed research will outline the conditions under which such
cross-design combinations are reasonable.

Broader Impact: This study will have broad impacts on syntheses of research in
mathematics and science education, and in many other areas (e.g., economics,
political science) where regression models and other forms of the linear model
are common. The methods provided by this research will enable reviewers to
include regression results in meta-analyses together with simpler indices (e.g.,
correlations, standardized mean differences). Special attention will be paid to
synthesis work where subpopulation comparisons (such as within and across
underserved group differences) are particularly important.